ITR: Providing Intuitive Access to Human Motion Databases

Our ability to capture human motion data has increased dramatically
making possible human motion databases that can support creative and
educational endeavors such as training of athletes, diagnosing and
treating motion disorders, and preserving our cultural heritage. To
have an impact, however, motion databases must be accessible to a wide
audience, including children and adult users with little programming
experience. During the time frame of this project, we will undertake
an exploration of a performance-based interface for a human motion
database. The interface will allow the user to act out the desired
motion and will require comparing time sequence data from the performance,
perhaps with missing or noisy entries, to time sequence data in the
database.

Retrieval techniques must compute the distance between a sample and
arbitrary motion subsequences in the database, making brute force
techniques prohibitively expensive, particularly for interactive
performance. Algorithms for dimensionality reduction, feature
transformations, and automatic segmentation will be implemented,
distance functions will be compared both quantitatively and via user
studies, and the performance of these algorithms with missing data will
be assessed. The research will be evaluated with traditional database
retrieval evaluation techniques and through observation and analysis of
users of the interfaces.